Upgrading and Digitizing the Rocky Mountain Biological Laboratory Herbarium

The Rocky Mountain Biological Lab (RMBL) has been awarded funding for herbarium cases. Because of the remote setting of the RMBL, as well as the age of the Lab, the RMBL herbarium is an important regional resource. The RMBL has been an important center for research training over the last 75 years. The RMBL herbarium serves as an important resource for approximately 50 ecologists and evolutionary biologists as well as a number of undergraduate and graduate students every summer. The RMBL is a private non-profit corporation situated in the Elk Mountains of south-central Colorado at an altitude of 2900 m. The mission of the organization, founded in 1928, is to provide research and educational opportunities in the biological sciences. Field stations like the RMBL facilitate research and education by providing scientists and students access to a wealth of information about the local ecosystem.